Geometry of Conformal and Quasiconformal Mappings

Abstract

Award: DMS-0405578
Principal Investigator: Christopher Bishop

The PI, Christopher Bishop, will study the geometric properties
of conformal and quasiconformal mappings, focusing on the
interactions between conformal structures, hyperbolic geometry,
low dimensional topology and numerical analysis. For example,
Moore's theorem states that if we take a certain collection of
sets on the 2-sphere and topologically collapse them to points
then we obtain a new topological sphere. The PI will investigate
when the quotient map can be conformal and will consider a number
of concrete problems from this general perspective, including
conformal welding, characterizations of John domains, Koebe's
conjecture, construction of Kleinian groups and other dynamical
objects. The PI will continue his earlier work on the geometry
of Kleinian limit sets and the behavior of the dimension as we
deform the limit set. The PI will also continue his work on the
connections between computational geometry, hyperbolic geometry
and conformal mappings, and seek new algorithms which compute the
Riemann mapping quickly and with rigorous error estimates. In
particular he will investigate computing conformal maps using the
medial axis (an object from computational geometry) which is
closely linked to 3-dimensional hyperbolic geometry via convex
hulls.

Conformal mappings are important both for their central role in
numerous mathematical problems (complex analysis, dynamical
systems,...) and in various applications (fluid flow, brain
mapping, statistical physics, numerical analysis of differential
equations,...), so we must have a good theoretical understanding
of these maps and good methods for computing them in
practice. The proposal deepens our theoretical understanding of
conformal maps by investigating new connections with other parts
of mathematics and computer science (point set topology,
3-dimensional hyperbolic geometry, Voronoi diagrams) and seeks to
use these connections to invent new algorithms for computing
conformal maps. For example, the medial axis is a widely studied
object in computer science (it is a description of the shape on
an object which has numerous applications in pattern recognition,
robotic motion, biology,...). The PI discovered it can also be
used to give a rough but fast approximation to conformal maps.
The PI will seek to improve this method, giving better algorithms
for conformal maps and also developing a better understanding of
the medial axis which will impact its other applications (for
example, the medial axis can change drastically when the object
being described changes only a little; this is a serious
computational problem which can be addressed by thinking of the
medial axis as an object in hyperbolic geometry instead of the
usual Euclidean geometry). The connection between the medial axis
and conformal maps may also lead to new ideas for studying
applications in three dimensions (where conformal mappings do not
exist, but maps based on the medial axis still do). Three
dimensional problems are the most important for applications, but
our understanding lags far behind the two dimensional case, so
new two dimensional ideas which generalize to higher dimensions
are important.